Mechanisms and Control of MRNA Selection for Translation in Higher Plants

Responses in plants to many environmental stresses include selective synthesis of proteins which enhance cell tolerance. The synthesis of these proteins is in part regulated at the level of mRNA translation. Selection of specific mRNAs for translation is likely to depend on the amounts and activities of the initiation factors which bind to the 5'-cap structure of mRNAs, and on the recognition of unique structures or sequences in the 5'- untranslated regions of the mRNAs which are selected. This proposal focuses on factors which bind to the 5'-untranslated region of mRNA, elF-4A, 4F and (iso)4F, and will explore how changes in factor modifications and interactions affect protein synthesis. Maize factors will be studied to determine: 1) the site at which elF-4F is phosphorylated in vivo, 2) if phosphorylation of elF-4F, 4F, or (iso)4F affects mRNA selection or translation efficiency in vitro, and 3) how phosphorylation patterns fluctuate in response to environmental stress. These experiments will yield basic information on the mechanisms of protein synthesis and translation control in higher plants, and are an essential first step in achieving our long-term goals of elucidating the importance of initiation factor phosphorylation in response to the environment and to other aspects of plant structural development. %%% Responses in plants to many environmental stresses (e.g., flooding, drought, heat, wounding) include selective synthesis of proteins which enhance cell tolerance and plant survival. The synthesis of these proteins is regulated in part by the selective translation of stress-response messenger RNAs (mRNA) into protein. The mechanism(s) by which these specific mRNAs are selected from the cellular mRNA pool is unknown, but is likely to depend on both the structure of the mRNAs, and on the activity of the protein synthesis factors which bind to and recruit mRNAs for translation. All of these factors can be modified by phosphorylation, and in some cases this has been shown to affect their function. This proposal focuses on the three initiation factors which bind to the 5'-untranslated region of mRNA, and will explore how changes in their modifications and interactions affect protein synthesis. Maize factors will be studied to determine: 1) how phosphorylation patterns fluctuate in response to environmental stress, 2) the location of phosphorylation sites in the proteins, and 3) the effect of specific phosphorylation events on factor function, subunit interactions, mRNA selection and translational efficiency. These experiments will yield basic information on the mechanisms of protein synthesis and translational control in higher plants, and are an essential first step in achieving our long-term goals of elucidating the importance of initiation factor phosphorylation in response to the environment and to events in plant development.